Mathematical Sciences: Index Problems for Singular and Degenerating Manifolds

The principal investigator will study index problems for first-order singular operators which have specified form near singular strata. This class of operators includes classical geometric operators with Dirac signatures and those having conic type strata. The main tool to be exploited in this investigation is the "wedge calculus" and its extension to pseudomanifolds. For most of the twentieth century operators with various types of singular sets have been the mainstay of theoretical physics. Earliest of these was one first studied by Dirac. This operator had the property that while it was zero everywhere except at a single point, its integral, or the area under its graph, was positive. At first such operators used by physicists had no sensible mathematical explanation. But eventually mathematicians were able to explain them by changing the context of their original interpretation. The principal investigator will analyze a large set of operators which includes Dirac's.